Support for Junior Scientists to Attend l989 Gordon ResearchConference on Nuclear Chemistry; New London, New Hampshire; June 1989

This grant provides funds to support student participation in the 1989 Nuclear Chemistry Gordon Conference. The conference will address a wide range of topics of current research interest for nuclear physics, with talks given by leading scientists and ample time reserved for discussion